U.S.-China Cooperative Research: Sequence and Chemostratigraphic Pilot Study of the Neoproterozoic Yangtze Platform, South China

0089252
Christie-Blick

This is a one-year cooperative proposal between Dr. Nicholas Christie-Blick of Columbia University and Professor Sun Weiguo of Nanjing Institute of Geology and Paleontology, Chinese Academy of Science. This project proposed to carry out a sampling trip to China to examine the stratigraphic and chemostratigraphic sequence of the Neoproterozoic Yangtze platform in South China. The great thickness of carbonate strata makes the Neoproterozoic Yangtze platform a unique place for this research. This project can provide the data to examine whether there is a strong relationship between negative excursions in carbon isotope and glaciations. The Chinese Academy of Science and the NSF jointly support this project.